Establishing a Virtual Community for Computer Science in New Mexico

Computer Science (31) This project establishes a New Mexico Computer Science (CS) Community Consortium with selected two-year community colleges around the State to promote computer science education through regular visits and distance education offerings from the NMSU Department of Computer Science. The project includes activities in the areas of program improvement, professional development for educators, educational materials development, and laboratory development. The primary participants in these activities are two-year college students and two-year college faculty members, mostly drawn from institutions with a prevalent Native American and Hispanic population. The consortium builds on existing solid collaborations between NMSU CS and various tribal two-year colleges in the region, and it integrates with existing activities aimed at outreach and improvement of recruitment and retention of students with a diverse background.